Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring.

Dr. Castillo-Chavez is a Professor of Biometrics and Chair of the Biometrics Unit at Cornell University. He is recognized as a researcher, dedicated teacher and mentor. Dr. Castillo-Chavez has amassed an outstanding record of achievement over a ten-year period including the following: Strong letters of support attesting to his success in helping students succeed. Seeking and receiving substantial grant support for mentoring programs. Internationally known researcher, who serves as a role model for aspiring Latin scientists. Numerous honors and awards, both National and International, for his work in science. Serving on the Boards of Directors , Society for the Advancement of Chicanos and Native Americans in Science and the Society for Mathematical Biology. Involving many students in research at the undergraduate and graduate level.